STTR Phase I: Test Methodology for MIMO Over the Air Testing in a Small Anechoic Chamber

This Small Business Technology Transfer (STTR) Phase I project will investigate the feasibility of using a small controlled environment for over-the-air (OTA) testing and validation of multiple antenna radio systems for next generation wireless networks. With the prevalence of multiple-input multiple-output (MIMO) communications systems for next generation wireless networks, new test and measurement solutions and standards will be required. Certification of next generation devices is an expensive and time-consuming process. The challenge of testing MIMO systems is the need to emulate real-life multipath environment with signal components clustered around the receiver. This project has unique intellectual merits in the research tasks that aim to reduce the size and resources required to perform MIMO/OTA testing. The proposed research will investigate methods of reducing the physical dimensions of an anechoic chamber used for MIMO/OTA testing while still accurately emulating statistical properties of the radio channel. Another unique merit of the proposed work is investigation of techniques to increase the number of clusters in a small test chamber. The outcome of this research will have a significant impact on the cost of testing and validation.

The broader impact/commercial potential of this project will be reduced cost of wireless device certification, making broadband connectivity more affordable to a wider population, including rural communities that currently have limited access to the Internet. As the demand for wireless communications has increased, spectral efficiency has become a key national interest. Further, the US White House has launched a broadband initiative to increase access to high speed networking throughout the country. One of the issues with bringing broadband to rural communities is the cost of mandatory certification of wireless devices. The feasibility of using small anechoic chambers for the test and certification of new generation MIMO wireless devices can enable young companies to more effectively compete with the established vendors. Smaller and more affordable chambers also hold the promise of expanding the number of research facilities and laboratories that can contribute their findings and thus facilitate the deployment of new generation radio technology.